Disproportionate Involvement of Blacks in the Juvenile Justice System: An Explanation

The primary objective of the project is to develop a competitive research proposal on "Disproportiate Involvement of Blacks in the Juvenile Justice System : An Explanation". Support of the project will assist a well trained, Black, social scientist to improve his research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.